SST: Biosensor arrays based on DNA shuffling and chemometrics for measurement of chlorinated solvent mixtures

0529048
Reardon
The goal of this project is to create a new type of biosensor system capable of simultaneously measuring the concentrations of multiple, chemically similar analytes. The research focuses on the measurement of mixtures of chlorinated ethenes in groundwater, but the approaches developed here have important potential applications in the biomedical, bioprocessing, and food industries. This biosensor system will be based on a fiber optic oxygen sensor (oxygen optode). Cells containing monooxygenase enzymes, which catalyze an oxygen-consuming reaction, will be layered on the tip of this optode, forming an optical biosensor. The approach for simultaneously monitoring similar analytes is to bundle a set of these biosensors, each with a different mutated monooxygenase and different sensitivity to the chlorinated ethenes. Analysis of the differing responses of the biosensors in the bundle will yield the concentrations of the individual chemicals, even when present in a mixture.